2001 Gordon Research Conference, Polar Marine Sciences

The Gordon Research Conference (GRC) for Polar Marine Sciences is seeking partial support of participants to attend its 3 rd GRC, "Field Analyses and Numerical Modeling of Coupled Physical/Chemical and Biological Systems", March 11-16, 2001, in Ventura, California. The conference will provide a great opportunity for cutting-edge presentations and lively discussion of ideas in predictive system dynamics that at the forefront of polar marine science. The scientific program has been developed to foster strong controversy in a friendly environment and, hopefully, open minds about other or new possibilities to explore. The conference will be useful for the training of new polar scientists and the planning for polar research programs that impact on the polar environment and global change issues relating to these polar environments.